Support for the Teacher Enhancement Program's 1992 Proposal Review Panel

This is an award to National Bio Sytems, Inc. for support services for the Teacher Enhancement Panel Meeting October 1,2 and 3.